CyberAI Innovation: Experiential Learning for Multimodal Artificial Intelligence Security

This project aims to serve the national interest by strengthening education and workforce preparation in artificial intelligence (AI) and cybersecurity. Rapid advances in AI are transforming systems used in government, critical infrastructure, and industry. Many of these systems are multimodal, combining text, images, audio, video, and sensor information to support perception, reasoning, tool use, decisions, and later actions. While these systems offer powerful new capabilities, they can also introduce cybersecurity risks that may affect public safety, national security, and essential services. A problem introduced in one part of a complex AI system can influence how later parts interpret information, make decisions, use tools, or take action. Addressing these risks will require new educational approaches that prepare students to analyze multimodal AI systems as end-to-end pipelines, examine how problems can arise in one component and spread across later stages, and design effective defenses. The significance of this project is that it intends to strengthen national capacity to prepare future AI and cybersecurity professionals for these emerging security challenges. The project plans to create a broadly adoptable interactive learning framework through which students will build and explore representative AI systems, visualize and examine how attacks and defenses affect system behavior, and practice redesigning systems to improve security. The project is expected to produce reusable learning resources, instructional activities, and implementation guidance that can support adoption across educational settings, strengthen the domestic workforce, and contribute to secure and trustworthy AI systems that serve the public.

Grounded primarily in constructivist experiential learning, the project’s goals are to develop, implement, and study an experiential learning framework for multimodal AI security education, guided by two research questions: RQ1: What technological and pedagogical affordances are essential for supporting students’ analysis of system-level vulnerabilities in multimodal AI systems? RQ2: How can experiential learning integrated with learner-AI collaborative reasoning support the development and assessment of students’ adversarial thinking and system-level security reasoning? Its scope is expected to include development of: (1) an interactive web-based experiential learning platform, TouchCyberAI, that supports construction and configuration of multimodal AI pipelines, coordinated visualization of attacks, defenses, and vulnerability propagation, and structured learner-AI collaborative reasoning; and (2) a scenario-driven curriculum framework and associated experiential learning activities that integrate the platform into AI and cybersecurity education. Through representative multimodal AI security scenarios, progressive instructional scaffolding, guided labs, comparative exploration, secure redesign activities, and collaborative hackathon-based learning activities, the project intends to support students in actively investigating how vulnerabilities emerge, propagate, and can be mitigated across realistic multimodal AI pipelines. The project aims to advance understanding of how technological and pedagogical affordances can support students’ adversarial thinking, evidence-grounded attack-defense analysis, and system-level security reasoning about vulnerabilities in multimodal AI-enabled systems. The project also plans to conduct formative and summative mixed-methods evaluation across undergraduate, graduate, online, and selected informal-learning settings to assess usability, cognitive engagement, student learning, instructional implementation, and broader-adoption potential, while informing iterative refinement. Dissemination plans include reusable curriculum modules, scenario resources, assessment materials, implementation guidance, collaborative activities, and engagement with educational, industry, and government stakeholders. This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program, which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.